Cryostat Design Studies for the ATLAS Experiment at the CERNLHC

In this proposal, Professor Slattery requests support for Academic Infrastructure through the ARI program. This infrastructure will enable the ATLAS collaboration, of which the University of Rochester is a member, to carry out prototype R&D for the ATLAS cryostat as well as other detector components.